Middle School 'SMART PROCESS' -- Local Systemic Change through Teacher Enhancement

9819285
NADLER

This local systemic change project will attempt to influence three dimensions of middle-school culture by enhancing teaching (standards-based content and conceptual and procedural scientific literacy), learning (inquiry-based), and curriculum (NSF developed programs: e.g. SEPUP, FOSS and "Issues, Evidence and You"). The plan builds on two elementary-level, NSF-supported reform efforts and envisages a four-year initiative of professional development involving teachers, administrators, scientists, facilitators and parents.

This Middle School Science and Technology Reform Project extends an inquiry-oriented, contemporary science program to include a technology dimension -- defined as the applications of science skills -- to develop new knowledge.

This four-year initiative is planned to serve about 17,000 mostly ethnic minority and low income students.